Electronic Properties and Growth of Thin Film Diamond

A comprehensive theoretical investigation of the electronic properties and growth of thin film diamond is proposed. It will employ electronic structure and ab-initio molecular dynamics methods to study a) novel growth processes for diamond thin films and b) doping of diamond. The main focus of the growth part will be on mechanism leading to Atomic Layer Epitaxy for diamond and the rate=limiting steps in low pressure CVD growth. The impurities and defect part will concentrate on n type doping and on the possibility of altering the thermodynamic balance between diamond and graphite by an addition of a substantial amount of impurities.